Real-Time Ozone Imaging at McMurdo Station

#9505762 COMBERIATE With the installation of a special ground station at McMurdo Station, Antarctica, it is now possible to collect real-time ozone data from NASA spacecraft. NASA and NSF will jointly upgrade the station software to automatically produce ozone images every orbit as the Total Ozone Mapping Spectrometer - Earth Probe (TOMS-EP) satellite passes overhead, and make them available to users worldwide, via the INTERNET. Approximately $96,000 is required for the project. NASA has provided $66,000 for the prerequisite activities that need to be accomplished at the NASA Goddard Space Center. This award of $30,000 will upgrade the NASA Antarctic Interactive Support Launch Support (NAILS) system at McMurdo Station; develop, install, and test real-time ozone image processing software on the NAILS; and provide documentation and training for winter-over operators at McMurdo. The tasks funded by this award will be provided by a NASA Goddard contractor and reimbursed by NSF/OPP. It is recommended that this award be funded in FY-1995 at $30,000.